Protein and Metabolic Engineering for the Production of Biodegradable Plastics

This award by the Biomaterials program in the Division of Materials Reseach to State University of New York, College of Environmental Science and Forestry is to study the improvements of polyhydroxyalkanoates (PHAs) monomer supply through the application of in vitro evolutionary techniques to genes encoding microbial fatty acid biosynthetic enzymes. PHAs are microbially produced, biobased, and biodegradable polymers that have properties similar to petroleum-based polymers. Substitution of petroleum-based plastics with PHAs could alleviate many of the pollution problems associated with non-biodegradable plastics. PHA polyesters can be divided into several classes with different physical properties based on their monomer composition. Short-chain-length (SCL) PHAs consist of repeating units with 3-5 carbons and have thermoplastic properties. Medium-chain-length (MCL) PHAs consist of repeating units with 6-12 carbons and have elastomeric properties. SCL-MCL PHAs consist of repeating units of 4-12 carbons and have a wide range of physical properties dependent on their molar ratio of SCL to MCL monomers. Currently, the ability to produce MCL and SCL-MCL PHA polymers from unrelated carbon sources in recombinant organisms is limited due to low activity of potential MCL monomer-supplying enzymes. There are two main objectives for the proposed research: (1) Use of engineered bacteria harboring synthetic metabolic pathways to efficiently produce SCL and MCL copolymers from unrelated carbon sources; and (2) the alteration of the substrate specificity and specific activity of enzymes for the supply of PHA monomers to produce novel copolymer formulations. Enzyme engineering using random, error-prone PCR and rational design based on known crystal structures of enzymes will be used for the production of improved PHA monomer-supplying enzymes for the production of novel biodegradable polymers.

Plastics are invaluable materials that are used to produce many essential items in modern society. Most current plastics are derived from petroleum, which is a limited resource. There are many problems associated with petroleum-based plastics (pollution, waste disposal problems, greenhouse gas emission, competitive fuel utilization, etc.), which suggest that research in the area of biobased and biodegradable alternatives is of paramount importance. Studies supported by this research will use bacteria as “microbial factories” for the production of biodegradable plastics from renewable, plant-based resources. By engineering proteins within the bacteria, we will be able to produce higher quantities of biobased plastics and produce new types of biobased plastics with improved material properties. The work will yield new and detailed insights into how biodegradable plastics are produced in cells. Completion of the proposed research could have dramatic impacts on curtailing a variety of urban pollution issues caused by petroleum-based plastics.